PRF/J: Intraspecific Chloroplast-DNA Variation and Phytogeography in the Pacific Northwest

Many plants exhibit a similar geographic distribution, occurring from southeastern Alaska to northern California. Molecular genetic investigations of three species have revealed a pronounced north-south cytoplasmic discontinuity located south of the Wisconsin glacial maximum. These data implicate glaciation as a possible causal factor in creating the discontinuity and raises the possibility of a link between phytogeography and the genetic architecture of plants in the Pacific Northwest. If so, then other plants displaying similar geographic distributions should also exhibit similar patterns of genetic variation. This study addresses two questions: (a) do similar geographic patterns of chloroplast DNA (cpDNA) variation occur throughout a spectrum of Pacific Northwest plant taxa?, (b) are patterns of variation in cytoplasmic and nuclear markers congruent? Populations of five taxonomically diverse taxa (a gymnosperm, a monocot, and dicots from Dilleniidae, Rosidae, and Asteridae) having different life history features will be examined using cpDNA restriction site analysis, rDNA analysis, and enzyme electrophoresis. From these data, phylogenies will be generated and patterns of genetic variation will be assessed. Further analysis will address biogeographical questions and may help clarify the location and extent of suspected glacial refugia. %%% Our knowledge of the extent of intraspecific cpDNA variation will be enhanced through this investigation. It will also serve to facilitate a broad comparison of patterns and extent of cpDNA variation within species to that observed for nuclear genetic markers, improve knowledge of plant genetic architecture, and establish an important link between the areas of systematics and population genetics.